CAREER: Metalinguistic Natural Language Understanding

How people use language is a topic of study in a variety of fields, including linguistics, literature, law, and
language education. Extensive descriptions about many languages already exist in natural language itself
(e.g., grammar textbooks, writing advice, and linguistics articles). Descriptions in (for example) English
may include example sentences supplemented with technical terminology and formal notation. This
project will develop natural language processing (NLP) algorithms to process and mine these textual
resources so that language analysts can better detect and synthesize patterns of interest. First, algorithms
will be developed to recognize where a piece of text is commenting on the meaning of a word, or giving
an example of how it could be used. Second, algorithms for enriching text with technical descriptions will
be improved to report better estimates of their own strengths and weaknesses. Finally, capabilities for
retrieving specific uses of an ambiguous word in a large text collection will be developed to aid analysts.
The algorithmic contributions in this project are expected to have direct application to technologies in
various fields where close analysis of language in text collections is crucial, including law and linguistics.
On a wider scale, these capabilities have the potential to be transformative for artificial intelligence (AI),
allowing humans and machines to teach each other explicitly about how language works, to deftly access
scholarly work about language, and to give and interpret language advice (e.g., writing assistance).

This project develops algorithms and tasks with an eye toward technologies that would enable humans to
more efficiently and accurately conduct metalinguistic inquiries about text. Key challenges to be
addressed are: (1) Detecting textual metalanguage: This project will formulate tasks and algorithms to
recognize metalinguistic descriptions (such as the use/mention distinction, definitions, linguistic
examples) in text, focusing on three genres where they are abundant: law, language discussion forums,
and linguistics. A new benchmark dataset and shared task will be developed to compare metalinguistic
taggers. (2) Improving model confidence calibration, focusing on taggers with long-tail tagsets. Better
probability estimates will enable analysts to make informed decisions about how to balance automatic and
manual processing and can anticipate rates of different types of errors. (3) Query-by-example algorithms
will be developed for retrieving specific usages of an ambiguous word or phrase from a large text
collection. Tools leveraging such algorithms would open the way to new kinds of corpus-based
investigations by linguists, lexicographers, language teachers, and literary scholars.